Late Pliocene and Pleistocene Terrigenous Fluxes to the Atlantic Ocean and Arabian Sea: A Rock Magnetic Appoach

Over the last several years techniques have been developed for the measurement of various magnetic properties of marine sediments. Drs. King and Bloemendal have pioneered efforts to make these measurements on sediment cores both non-destructive and especially rapid. Consequently, they have raised the technique to the level where it can be used like other, more traditional techniques that determine past climate and oceanographic changes. The PI's will continue their previous investigations into the links between sediment composition and magnetic properties. Their goals will be to determine fluxes of terrigenous sediment during the late Neogene, with special focus on the time of initiation of N. Hemisphere glaciation at about 2.5 Ma. Soft sediments from IPOD/ODP cores and piston cores in the tropical eastern Atlantic, central North Atlantic, and the Arabian Sea will be measured, and with this variety of eolian, riverine and glacially derived terrigenoeus sediments they will: 1) explore the relationship between magnetic properties and the flux and grain-size of terrigenoeus sediments in these contrasting environments; 2) use these records to reconstruct the history of terrigeonous flux and climate in these three areas; and 3) perform laboratory experiments in conjunction with studies of selected core samples to determine the effects of reduction diagenesis and what magnetic criteria identify this process in soft sediments.